Photospheric Magnetoconvection

This project will use magnetogram and filtergram sequences to derive flow maps and time histories of displacements of concentrations of magnetic flux. In addition, the PIs will study the dispersal of flux over the solar surface on scales of several supergranules and below, particularly the reaction of flows to the presence of fields. The central goal is finding an appropriate model to describe the transport phenomena associated with photospheric magnetic flux. Specifically, the PIs hope to gain understanding of the differences in the diffusion coefficients, to the deviations from classical random walk, and to the dependence of the flow pattern on the local mean magnetic flux density. The project will combine high-resolution data to allow a detailed study of subarcsecond topology and flux dynamics with uninterrupted long-duration sequences with large fields of view, allowing a statistical study of flux displacement histories. The program will provide a means for systematic and coherent analysis, specifically focusing on magnetoconvection.***